Integrated Sensing: Acquisition, Compression and Interpolation of Panoramic Stereo Images of a Scene for Remote Walkthroughs

This proposal is aimed at producing novel images of a scene from arbitrary new
viewpoints using a sparse set of compressed panoramic snapshots or sample
images of the scene. The samples are taken from a relatively small number of
strategically placed cameras. A major application and evaluation testbed of
the proposed work is to enable walkthroughs of a 3D scene by generating the
images of the scene along a trajectory dynamically chosen by a remote user.
The focus of the proposed work is on the acquisition of panoramic stereo
images which serve as scene samples, and their interpolation (or
extrapolation) for producing a new stereo pair of images of the scene from an
arbitrary new viewpoint. The user follows a dynamically chosen arbitrary
trajectory and wishes to continuously teleview the scene from along the
trajectory points. It is assumed that relative locations of the objects in the
scene for which walkthroughs are to be generated are known; the object
locations are sparse; and that the strategic placement of the cameras does not
change significantly to warrant camera replacement. Development and
implementation of a stereo panoramic camera is proposed. Limited work is
proposed on joint image compression. The topology of the camera network also
allows the determination of which cameras are to be used to generate the
walkthrough image at any given point along the user drawn trajectory.
Applications of the proposed work include video surveillance, virtual museums
and video conferencing.